Analytical and Experimental Investigations of Elastic- Plastic Fracture in Solids

This project will study three dimensional deformation fields in the vicinity of stationary and growing cracks. A project with both analytical and experimental components will be conducted. Finite element methods will also be used to asses the role of thickness on near tip deformation fields.